Consortium for the Development of a Continuous Wave Nanosecond and Subnanosecond Transient EPR High Field Spectrometer

This award from the Academic Research Infrastructure Program (ARI) will assist the Department of Chemistry at Florida State University acquire an EPR. This equipment will enhance research in a number of areas including the following: (1) photosynthesis (2) photochemistry involving transient paramagnetic Species, and (3) transient EPR of kinetics processes. An electron paramagnetic resonance (EPR) spectrometer is an instrument used to obtain information about the molecular and electronic structure of molecules. It may also be used to obtain information about the lifetimes of free radicals which are often essential for the initiation of tumor growth and/or a variety of chemical reactions.